Undergraduate Research in Mechanical Engineering

9322224 Boehm This Research Experiences for Undergraduates project at University of Nevada-Las Vegas will involve undergraduates in research in the areas of: engineering system design, neural net feedback control systems, fuzzy controls, and radiant barrier systems. Particular attention will be given to recruiting underrepresented minority students. ***